Calcium-binding Proteins in Brain: X-ray and Spectroscopic Studies. A ROW Planning Grant.

This is a Research Opportunities for Women Research Planning Grant, to support preliminary studies and other activities related to the development of a research project.